Algorithms for Synthesis and Layout of Analog Intellectual Property

Advances in IC fabrication technology make possible complete electronic
systems on a single chip. Many such systems-on-a-chip require both digital
and analog computation. The analog subsystems interface to the continuous,
external world: wireless links, wired networks, sensors, transducers.
Electronic design automation technology for the digital subsystems is
relatively robust; automation for the analog subsystems is still primitive.
This project is developing design automation methods for synthesis and
layout of critical analog circuit blocks. The approach focuses on novel
numerical and combinatorial optimization algorithms that can efficiently
search over many circuit solution candidates. The goal is to be able to
archive synthesizable descriptions of circuits as analog "intellectual
property", thus allowing them to be reused and retargeted in new
applications